Path Planning and Visibility Problems

This grant will support Dr. Ntafos' work in computational geometry for robot motion planning under uncertainty. Specific problem domains include limited visibility range, unknown environments, and terrain regions offering different traversal costs. Robotic goals include least-weight path planning, limited-visibility watchman and sweeper route planning, and scheduling of surveillance tours with multiple watchmen under a variety of coordination and optimization criteria.